Doctoral Dissertation Research: A Study of the Socioeconomic Organization of an East Greenlandic Mixed Cash/Subsistence Economy

9400316 HUNT This dissertation project on the socio-economic organization of an East Greenlandic hunting economy, based on the harvesting of seals, will result in a description and analysis of an economy operating in both a modern industrial market context and a traditional domestic household economy. The subsequent analysis will contribute to social theory on the impact of cash on traditional subsistence economies and the structure of mixed economies. In the context of the 1989 European Community's indefinite ban on the trade of seal skins, the research will contribute to our understanding of the adaptive strategies of a contemporary Arctic society. ***